1993 Particle Accelerator Conference, May 17-20, 1993, Washington, DC.

This grant will support the publication of the proceedings of the 1993 Particle Accelerator Conference, the fifteenth in the series. These conferences have become the most important record of developments in the emerging cross- disciplinary science of particle accelerators.